Astrophysical Cosmology: A Multi-Epoch Approach

AST-9803137 Norman This multi-institution project is a coordinated effort by the former Grand Challenge Cosmology Consortium to explore systematically the observational consequences of theories of structure formation across multiple epochs, including recombinations, first structure formation, reionization, and the formation of galaxies, clusters, and large scale structure. This multi-epoch approach to cosmology is meaningful because cold dark matter cosmogonies are mathematically precise, making definite predictions at all stages of cosmic evolution z less than or equal to 10^9. The approach is now feasible by virtue of a new suite of multiphysics, high resolution hydrodynamic cosmology codes the team has developed for the coming generation of teraflopscale parallel supercomputers. The physics of the gas and radiation, while computationally challenging, is nonetheless understood, and we are able to draw upon decades of classical astrophysics research in building our models. The anticipated increase in computer power will improve the reliability of the models considerably. This project is supported by NSF's Division of Astronomical Science, the Division of Physical Sciences, and the Knowledge and Distributed Intelligence Initiative. ***